Research Experiences for Undergraduates

9322361 Ataai This Research Experiences for Undergraduates project in the Department of Chemical Engineering at the University of Pittsburgh will introduce undergraduates from engineering and the sciences, especially undergraduates majoring in chemical engineering, chemistry, and biology at small colleges and universities in the region, to a research environment in which full-time faculty, visiting scientists, post-docs, and graduates students are working on research that promises to lead to important new technologies in the fields such as biochemical engineering, catalysis, and fuels. ***